Collaborative Research: An integrated theoretical and empirical approach to across-shelf mixing and connectivity of mussel populations

Existing larval transport models focus mainly on along-shelf transport and have done little to explicitly incorporate the effects of cross-shelf mixing and transport processes. Yet cross-shelf transits (both outgoing and incoming legs) are critical components of the dispersal paths of coastal invertebrates. This project will explore the role of cross-shelf mixing in the connectivity of blue mussel populations in eastern Maine. Previous work has shown that the Eastern Maine Coastal Current (EMCC) begins to diverge from shore southwest of the Grand Manan Channel and creates a gradient in cross-shelf mixing and larval transport, with cross-shelf mixing being more common on the northeastern end, episodic in the transitional middle area, and then becoming rare in the southwestern half of the region of the Gulf of Maine. As a result, the investigators predict that northeastern populations of mussels are seeded mostly from up-stream sources, while a significant component of self-seeding (local retention) exists in southwestern populations. Larvae settling in the intervening bays are expected to be derived from a mixture of local and up-stream sources. Using a combined empirical and theoretical approach hydrographic, current profile, and larval vertical migration data will be collected and used to develop and validate a high-resolution coastal circulation model coupled to a model of larval behavior. The investigators will model simulations in different years using the empirical data from mussel reproductive output and spawning times. Connectivity predicted from this model will be then tested against independent empirical estimates of connectivity based on trace element fingerprinting for larvae which can be connected to specific natal habitats. Regions of agreement and discrepancy in the model will be identified to guide additional data collection and model refinement. This iterative process will ensure an understanding of both larval transport patterns and processes, and provide estimates of inter-annual variability in connectivity for blue mussel populations in the Gulf of Maine.

The project will provide interdisciplinary training for a number of undergraduate and graduate students. All three investigators have established track records of training students at either the undergraduate or graduate level, or both. Inter-institutional and interdisciplinary exchange will be fostered by a twice per year mini-symposium/retreat at which all project participants from the three laboratories will present and discuss results from their portions of the project. This project also has important implications for the commercial mussel aquaculture industry in Maine, which relies heavily on natural settlement and desires a better understanding of larval supply patterns to facilitate site selection for collecting newly settled spat.